Molecular Relaxation by ESR Spectroscopy and Related Phenomena

Dr. Jack H. Freed is supported by a grant from the Experimental Physical Chemistry Program to study molecular relaxation by electron spin resonance (ESR) spectroscopy. These studies provide valuable insight into the mechanisms of molecular motion and also into the rapidly emerging medical area of magnetic imaging of the human body. A variety of newly developed ESR relaxation techniques are to be employed, and the necessary theoretical frameworks for understanding these experiments are also to be developed and extended. Specific projects include the following: (1) the further applications of the new two-dimensional Fourier-Transform electron-electron double resonance (2D-ELDOR) technique to the study of rotational molecular dynamics in liquids; (2) the extension of 2D-ELDOR to the slow motional regime; (3) the application of field-swept 2D-electron spin echo techniques and slow-motional 2D-ELDOR to the study of viscous liquids and glasses; (4) studies of molecular dynamics on surfaces by 2D-ESR methods; (5) comparisons of microscopic vs. macroscopic diffusion in complex liquids utilizing the method of dynamic imaging of diffusion (DID) - ESR for measurement of macroscopic translational diffusion and 2D-ELDOR for microscopic translational diffusion; (6) applications of far-infrared ESR to the study of molecular dynamics.